Saint Francis Hospital Network--NSFNET/Internet Connection

9417130 Richards The Saint Francis Hospital Network - NSFNET Connection Project will provide Saint Francis Hospital, the largest health complex in eastern Oklahoma, a full-service connection to the Internet. This access to electronic services will afford to Saint Francis Hospital researchers and clinicians the entire spectrum of Internet medical resources including national health and medical databases, medical special interest and discussion groups, electronic mail and data exchange with cooperative research groups. It will also offer Saint Francis Hospital the opportunity to explore providing services through the Internet to communities of Northeast Oklahoma.